Mathematical Sciences: Studies in Algebraic Geometry

The investigator studies arithmetical group quotients of bounded Hermitian domains of exceptional types with the goal to find their geometric interpretation as the moduli spaces of some special Calabi-Yau manifolds. The cohomology of such varieties should carry additional special structures related to representation theory of Lie groups of exceptional type. Calabi-Yau manifolds have recently become notorious because of their important role in physics. New ten dimensional models of the space-time proposed in the string theory contain a Calabi-Yau manifold as an additional part to the usual four dimensional space-time. The special Calabi-Yau manifolds sought by the investigator may appear as the right candidates for the choice of the model of the space-time.